Doctoral Dissertation Improvement Grant-The Archaeology of Swahili Social Differentiation: Earth-and-Thatch Neighborhoods at Gede, Kenya, 11th-16th Centuries AD

Under the supervision of Dr. Adria LaViolette, Lynn Koplin will direct archaeological
excavations at Gede on the Kenyan coast, where she is conducting research
for her doctoral dissertation. The project examines social
differentiation in areas of earth-and-thatch domestic architecture at the
major 11th-16th-century Swahili stonetown site. Because archaeologists have
primarily concentrated on the stone components of these large,
architecturally-mixed sites, currently little is known about activities,
diet and material culture among the majority, the inhabitants of earthen
dwellings, often assumed to have been undifferentiated non-elites. The
proposed research will compare frequency and spatial organization of craft
production, diet and wealth between stone and earth-and-thatch components of
the same town, with a view to elucidating social differentiation within
earth-and-thatch areas. When the distribution of activities and goods in
non-stone neighborhoods are better understood, spatial variation in
production and consumption may suggest axes of social differentiation, with
which to trace social reorganization through time.

The need to focus on intrasite variation, expressed in
archaeologically-recoverable forms of production and consumption, is
important as archaeologists attempt to elucidate indigenous forms of social
complexity in sub-Saharan Africa. This is especially important as it
relates to Swahili society, which until recently was attributed to external
factors. This research is part of a new impetus on a larger level to search
within Africa for the constitutive dynamics of African societies, and on
Swahili sites in general this requires dismantling monolithic conceptions of
the society by examining the overlooked majority, those in non-stone
dwellings. Beyond the level of Swahili archaeology, this research draws on
and will contribute to archaeological literature on the East African Iron
Age, rise of complex societies, spatial organization and activity areas.
The changes that accompanied the foundation, growth, contraction and
abandonment of Gede fit into the larger history of the Iron Age
efflorescence on the continent, and Africanist archaeologists are attempting
to fill out the magnitude of activities such as pottery making, increased
trade, specialized production, farming and other foodways that accompanied
social expansion. Additionally, preliminary insights into the principles
organizing neighborhoods of earthen architecture will engage the
anthropological debates on spatial organization.